Communication and Topological Issues Concerning Multicomputers

This research project investigates issues which are significant to the performance of multicomputers. A particular problem investigated is multidestination routing (known as multicast), which is highly demanded by many applications.